Conference on Research in Income and Wealth Entitled New Products to be held at Williamsburg, VA, April 29-30, 1994

9321051 Bresnahan The National Bureau of Economic Research - Conference on Research on Income and Wealth - organizes research conferences on timely topics emphasizing empirical issues. The conferences bring together empirical researchers from government, academia, and the private sector. The different researchers include economists and statisticians with interests in methodology, statistics, economic theory, and policy. This particular conference will focus on measurement, interpretative, and conceptual issues arising from the economic importance of new goods and services. It will address current concerns associated with incorporating new products and services into output and price indexes. ***